Controlled Fire Polishing for Scratchitti Removal and Glass Resurfacing

Controlled Fire Polishing for Scratchitti Removal and Glass Resurfacing
Shane Y. Hong and Vijay Modi
Columbia University

Abstract

The objective of this proposal is to develop an environmentally benign, novel re-manufacturing process to relief the bothersome scratchitti vandalism- permanent scratches on the glass surface. In this proposal, an innovative approach, controlled fire polishing, will be used. Intensive heat melts only a thin layer of the glass panel. During the cooling process, the surface tension will even out the scratching indent. The process will enable the reuse of the damaged window/door and eliminate the otherwise waste by replacement new glass. It allows a better living environment for people, rid of the unpleasant and annoying graffiti vandalism.